Modern Carbonate Environments, Diagenesis, Soil Formation and Pleistocene Analogues

This workshop is designed for undergraduate college faculty who teach courses in historical geology, paleontology, petrology, or related fields, and who have had little or no experience in modern carbonates. Its purpose is to expand the participant's understanding of modern carbonate sediments, precursors of ancient limestones, and post-depositional changes that effect them. Specific topics to be examined include carbonate- secreting organisms, sediments, environments of deposition, carbonate digenesis, soil formation and interpretation of Pleistocene deposits. The program involves daily field work, labs and lectures and will be held at the Bahamian Field Station, San Salvador, Bahamas. Laboratory exercises, which can be conducted at the participants home institutions, will utilize samples collected on daily field trips. A guidebook, approximately 100 pages in length, will be prepared and provided for each participant.